Research Initiation Grants: Optimal Design Synthesis of Dynamic Structural Modification Elements

The objectives of this proposed research are twofold: 1) to investigate the impact of high spatial density dynamic measurement and rotational degrees-of-freedom measurement on dynamic structural modification, 2) to develop an optimal degrees of freedom in the experimentally derived dynamic model. This work will result in a more informationally complete dynamics model which should be able to predict the response of proposed modifications on the structure. The modifications to the structure will be realized by synthesizing a structural element that generates the desired response based on prescribed design goals and constraints. Results from the field of structural optimization will be applied to the experimental dynamics model to make the design trade-offs.